ITR: System Support for Mobile Multimedia and Web Applications

The growing popularity of mobile devices with wireless capabilities
imposes new and fundamental challenges in extending the capabilities
of wired Internet applications to the wireless domain. This project will
investigate proxy-based techniques for enabling the next generation of
mobile multimedia and web applications. The proposed research will focus on
three characteristics of mobile environments, namely client mobility,
intermittent connectivity, and resource-poor nature of mobile devices.
Research issues that will be addressed in this project include
(i) power-friendly streaming techniques and real-time handoffs for
mobile multimedia applications, and (ii) caching and dissemination of
time-varying and location-dependent data accessed by mobile web
applications. The proposed techniques will be evaluated using an
eclectic mix of simulation, analysis and prototype implementation. The
significance of the proposed research arises from the widespread and
growing use of mobile devices that provide ubiquitous, wireless access
to data on the Internet. The likely impact of this research will be
to advance the state of the art in proxy-based infrastructures for
next-generation mobile multimedia and web applications.